CAREER: Large-Scale Markov Chain Monte Carlo for Reliable Machine Learning

A core capability of intelligence is reasoning about hidden information. Many artificial intelligence (AI) approaches reason about hidden information by constructing a statistical model and then running a statistical inference algorithm to learn hidden information from observed data. But many inference algorithms take a very long time to run when they are learning from a very large amount of data; or, worse, they might run quickly but give the wrong answer. This is problematic as the world trends towards large-scale AI. This project will build new general statistical inference algorithms that will still run efficiently, even on very large datasets and on very complicated models, while having provable reliability guarantees. This will promote the progress of science by making scalable statistical inference reliable. The project will also further education in AI through the development of open-source course resources that give students hands-on experience with how scalability and reliability interact in ML systems.

The project will focus on Markov chain Monte Carlo (MCMC) methods, which is a class of statistical inference algorithm that work by simulating a random process that converges to a desired statistical model. Markov chain Monte Carlo methods can give very accurate statistical estimates, but can scale poorly to large datasets and complicated models. This project will fix this by building new algorithms that address scaling to large data and large models with data-subsampling and asynchronous parallelism, respectively. Throughout, it will focus on proving theoretical guarantees that expose the trade-off between scalability and reliability for MCMC.